Research Initiation Award: Design for Diagnosability

The project increases the quality of mechanical products through the development of methodologies to evaluate and improve the diagnosability (a measure of the ability to isolate system faults) of these products concurrent with the conceptual and embodiment phases of the design process. The increase in quality results from reduced loss of functionality and lower life cycle costs for products designed using these methodologies. The methodologies are developed through the functional decomposition and form to function mapping of existing test bed products, and through the redesign of those products for increased diagnosability. The procedures are similar to and integrated with the other aspects of the concurrent engineering process.